COMPASS: Composable and Parallel Simulation of Internetworks

The unprecedented, exponential growth of the Internet has far outstripped the capacity of the
tools needed to analyze modern networks. Simulation remains the method of choice for network
designers, researchers, and managers for many analysis problems. However, modern simulation
tools are typically limited to analyzing tens to hundreds of network nodes, while studies of
current and future networks such as the next generation Internet call for analyses of thousands to
millions. New, practical approaches to network modeling and simulation are needed to address
this growing problem.
Two frequently heard problems with simulation technology today are (1) the excessive amount
of time required to construct a model for a large network, and (2) the inordinate amount of
computer time required to execute the resulting simulation program. This project, called
COMPASS (COMposable and PArallel Simulation of internetworkS), will attack the first
problem by defining and realizing an approach to enable rapid construction of network models
by reusing model components developed by others, possibly using different simulation software
packages. The second problem will be attacked through execution of the model on parallel
and/or distributed computers. In this regard, this project will focus on realizing a practical,
flexible, approach to parallelization that can be widely exploited by the networking community.
This approach, based on composing (federating) autonomous simulators executing on different
processors, cleanly separates the parallel and sequential portions of the simulation, allowing
concurrent optimization and refinement of each. A related problem that will be studied concerns
execution of models over a geographically distributed area in situations where model
components cannot be easily co-located.
To demonstrate this approach, an optimized parallel/distributed implementation of the ns2
simulator will be realized as part of this project. This software will be realized on widely
available computing platforms and will be made freely available to the networking community in
collaboration with the VINT/ns group at USC/ISI. Because ns2 is widely used in the networking
community, the potential impact of this project is large. Moreover, the ability to easily reuse
network models developed by others using different simulation packages can lead to a paradigm
shift in the way modeling and simulation is routinely practiced in the networking community.
Finally, simulation of multicast protocols will be used as a vehicle to evaluate and refine the
parallel simulation designs and demonstrate their effectiveness. Multicast protocols have a
particularly strong need for scalable simulation tools. It is an area where new ideas and
proposals are still being generated. Research in this project will focus on multicast protocols that
are of current interest to the Internet community; reliable multicast, layered video multicast and
data dissemination applications will be studied. This work will not only provide a proof of
concept for the parallel simulation research, but will also provide an improved evaluation
capability to the networking community for solutions to problems of current interest.